EMT/QIS: GaAs hole spins as qubits: Eliminating hyperfine interaction-induced decoherence

EMT/QIS: GaAs hole spins as qubits: Eliminating hyperfine interaction-induced
decoherence
Quantum Computing is an emerging area of science and engineering. Its broad goal
is to harness the superposition of quantum states for computing purposes. The elementary
building block of a quantum computer is the quantum bit (qubit). Quantum bits have been
demonstrated in a wide variety of systems ranging from trapped ions, to electron spins in
semiconductors, to superconductors. In order to be useful, a qubit must be properly
initialized, measured, and coupled to other qubits. The quality of a qubit is characterized
by a lifetime (T1) and a coherence time (T2). These time scales vary by several orders of
magnitude from one system to another (e.g. trapped ion versus superconducting qubits).
It is therefore customary to quote a quality factor, Q, which is the ratio of the coherence
time to the typical gate operation time.
We will build qubits based on hole spins in GaAs nanometer-size quantum dots.
Hole spins are promising candidates since the hole wavefunctions have p-like orbitals. As
a result, hyperfine interactions with the host crystal nuclei are expected to be negligible,
leading to spin coherence times approaching the hole spin lifetime of 300 microseconds.
Taking into account the typical gate operation time of ~150 ps, a hole spin qubit, if
realized, could have a quality factor of nearly 2 million, well beyond the threshold for
fault tolerance. The primary goal of this project is to accurately measure, and determine
what limits, the quantum coherence times of hole spins in GaAs quantum dots.